SBIR Phase I: Tristate and Thresholdless Antiferroelectric Liquid Crystals

9861043
This Small Business Innovation Research (SBIR) project aims to develop suitable broad temperature antiferroelectric mixtures, at least one each of the thresholdless and tristate varieties, and to further refine material properties such as viscosity, pitch, and polarization. The proposers will synthesize new potentially antiferro-electric compounds and use them to formulate thresholdless and tristate antiferro-electric mixtures. Displaytech currently sells a high-resolution full color microdisplay for use in head mounted and projection displays. They also sell a color filter used in conjunction with the microdisplay to create the projection display. In the color filter, two bistable ferroelectric liquid crystal (FLC) displays must be stacked to give the three required states and thus provide three colors. Using a tristable antiferroelectric liquid crystal (AFLC) in the device may make it possible to use a single cell to address all three states. The microdisplay uses time averaging of FLCs to provide gray scale but at less than the optimal number of levels. Using a thresholdless AFLC, which shows analogue gray scale with no hysteresis, large and temperature insensitive tilt angle, very fast switching, very large viewing angle, high contrast ratio, and minimal LC defects could increase the number of gray scale levels.
Potential commercial applications include color filters, high resolution full color displays, flat panel displays.